Water Cycle Variations in Northern High Latitudes

WPC* 2 B V J Z Courier < ? x x x , 2 x 6 X @ `7 X @ HP LaserJet 4 HPLAS4.PRS 4 x @ \ X @NLQ 10cpi 2 6 Z #| x >H x 6 X @ ı{ X @ IBM Proprinter IBMPROPR.PRS x @ X @ #| x 2 ( 9319952 Walsh "Water Cycle Variations in North High Latitudes" This project will serve as a bridge between global climate modeling and regionally focussed hydrologic studies of northern high latitudes. It will mesh with both the Global Energy and Water Cycle Experiment (GEWEX) and the Atmospheric Model Intercomparison Project (AMIP). The first task will be the compilation of a climatological database, including monthly fields as well as spatial and temporal variances, for use in (a) validating climate model simulations of the high latitude hydrologic cycle and its variability, and (b) quantifying the low frequency variability in high latitude hydrologic quantities. The database compilation will focus on precipitation and runoff fields, supplemented by computations of atmospheric moisture flux convergence, which will be used to estimate the net P E (precipitation minus evapotranspiration) on a regional basis. The second task will be to diagnose quantitatively the high latitude hydrologic cycle of the AMIP simulations in order to determine the reasons for the model overestimation of arctic precipitation. The last task involves the use of a regional atmospheric model to determine what resolution is required to realistically simulate the spatial and temporal variability of precipitation over topographically complex areas in high latitudes. All three tasks are interdependent and each is an important contribution to efforts to increase our ability to estimate the potential for global climate change. ***